Kinetics and Thermodynamics of Gas-Phase Electron-Transfer Reactions

This research project will involve the development of experimental data and a theoretical framework for the transfer of electrons between metal-containing molecules in the gas phase. Although such reactions in solutions have been under investigation for several decades, many details of mechanism remain obscure because of the difficulty of evaluating the role of solvent molecules. This gas-phase study will be conducted in the absence of solvent and is expected to allow an evaluation of the intrinsic factors which govern the rates of this extremely important class of chemical and biochemical reactions. Redox and photochemical processes involving primarily metal-containing reactants in the gas phase will be studied by using Fourier transform ion cyclotron resonance mass spectrometry (FTICR-MS). A major goal of the project will be to provide data on gas-phase redox reactions of large polyatomic reactants, so that this class of reactions may be compared and contrasted to electron transfer reactions of small molecules in the gas phase ( i.e. atoms and diatomics) and large reactants in condensed-phase processes. Kinetics and thermodynamic properties will be measured for electron-transfer reactions involving a variety of reactants, theories will be developed to model gas-phase redox reactions of polyatomic species, and solution and gas-phase results will be correlated. The metallic species studied will be primarily volatile organometallics, but less volatile metal complexes and non-metallic reactants will also be investigated using laser desorpotion. Variation of pressure, temperature and laser excitation will be used to probe the energetics of the potential surfaces. Marcus theories and other models will be applied to correlate and systematize the dependence of rates on the experimental variables. The first extensive set of relative adiabatic ionization potentials for the metallic complexes will be determined. The role of electron transfer mechanisms in the chemistry of anionic organometallic nucleophiles will be illuminated by investigation of the kinetics and thermodynamics of displacement reactions at carbon centers.